Career Access: Strategic Planning Workshop for the Recruitment and Retention of Women and Minorities in Ecology; Summer 1993; Washington, DC

9353815 Holland This proposal requests partial funding for a four-day workshop of selected members of the Ecological Society of America (ESA) to develop a strategic plan for the recruitment and retention of women and minorities in the field of ecology. ESA is the major scientific society for ecologists in the United States with a membership of approximately 7,000. The impetus for this proposal was a survey of the association membership which indicated that women and minorities are underrepresented in this field. ***